Manufacturability of Long High Temperature Superconducting Wires by a Novel Isothermal Melt Processing Technique

9634872 Shaw The silver-sheathed Bi-2212 superconductor has been the prime candidate for the applications such as electric generators, motors, high-field magnets, transmission cables, superconducting magnetics energy storage for the high Tc superconducting wires and tapes. It needs to be melt processed, between 870-910 Centigrade in air, to transform the oxide precursor powder to the proper (PMG) processing has been widely studied, but has several drawbacks which have prevented the manufacturing of long length of these conductors. The (IMP) techniques to fabricate 100-400 meter long high temperature silver-sheathed superconducting tapes with a critical current density greater than 50,000 A/square centimeter. This project has a balance between theory and experiment. The outcome of this study will lay the groundwork for scaling up the IMP technique to produce long BI-2212 conductor.